EMT/BSSE: A Controller for Autonomous Systems Based on Principles of Vertebrate Neuromodulation

EMT/BSSE: A Controller for Autonomous Systems
Based on Principles of Vertebrate Neuromodulation
Robots and autonomous systems require some level of supervision and tuning of
parameters to fit a particular domain. However, biological organisms have the ability to
respond quickly and appropriately in an ever-changing world. Because this adaptability
is so critical for survival, all vertebrates have sub-cortical structures, which comprise the
neuromodulatory systems. These systems regulate fundamental behaviors and set the
organism’s internal and behavioral states. This research involves designing a controller
for autonomous systems that is modeled after the vertebrate neuromodulatory system.
This neurally inspired model enables robots to approach the behavioral complexity and
flexibility associated with higher order animals, and would be a major improvement in the
design of autonomous systems.
Neuromodulators in the nervous system signal environmental changes to the nervous
system that alter neuronal responses in such a way that the organism can respond
quickly and accurately to these changes. There are separate neuromodulators that
respond to threats, reward anticipation, novelty, and attentional effort. However, each of
these neuromodulatory systems have a similar effect, that is, to cause an organism to be
decisive when environmental conditions call for such actions, and allow an organism to
be more exploratory when there are no pressing events. A design strategy, based on
principles of the vertebrate neuromodulatory system, is used to control the behavior of
autonomous robot systems. This research shows that such a system responds
appropriately and adapts to environmental changes without human intervention.
Moreover, this research shows that a controller, which is based on neuromodulation, can
be extended to any system in which an agent is situated in a dynamic, unconstrained
environment.